Inverse Boundary Problems

9705792 Uhlmann The PI plans to consider several inverse boundary value problems arising in applications. In these non-invasive methods one attempts to determine the internal parameters of a body by making measurements at the boundary of the body. An example of this is "Electrical Impedance Tomography". In this case the measurements at the boundary are current and voltage measurements, and one would like to determine the conductivity of the body. The PI plans to consider the case of anisotropic conductivities and non-smooth isotropic conductivities. Another important unsolved problem is whether one can effectively characterize all the possible outcomes of voltage and current measurements for conductivities. The proposer plans to investigate analog inverse problems arising in the mechanics of materials. In particular one would like to determine the elastic parameters of an elastic body by making measurements of displacements and tractions at the boundary. The PI plans to consider the case of transversally isotropic materials and also materials with residual stress. The PI plans to consider several inverse boundary value problems arising in applications. In these non-invasive methods one attempts to determine the internal parameters of a body by making measurements at the boundary of the body. For instance, electrical impedance imaging systems apply currents to the outside surface of a body and record the voltages that result. This data is used to reconstruct and display an approximation to the electrical conductivity inside the body. The electrical conductivity of lung, air, blood, cardiac muscle, breast tissue, and breast tumors are all different. For this reason electrical impedance imaging is being tested as a method for monotoring heart and lung function as well as screening for breast cancer. Other application of this inverse method is non-destructive evaluation of materials, in particular in the detection of internal cracks and corrosion in planes. T he design for these imaging systems involve the analysis of forward and inverse problems for partial differential equations.